Sensor-Based Motion Planning System for a Robot Arm Operating Among Unknown Obstacles

This work is concerned with designing an experimental prototype for a robot sensor-based navigation system for an arm manipulator operating in an environment with unknown obstacles. The motion planning part of the system will be based on the algorithms of dynamic path planning (DPP). The sensor system of the arm manipulator consists of dozens of active infra-red proximity sensors covering the whole body of the arm. This forms a kind of aura similar to that provided by the hairs on the leg of an insect. Within the radius of its sensitivity, the sensor system allows the arm to feel the obstacle it is approaching, to identify which points of its body are the closest to the obstacle, and to use this information to maneuver around the obstacle. The work on the sensory modules is already underway; the first results indicate that the system can be made sufficiently sensitive and immune to the variation in object reflectivity and ambient lighting. The proposed work covers a period of three years and consists of the development of the multi-sensor "skin" of the arm, including its control scheme, integration of the sensor and the motion planning subsystems, and extensive experimental work on the arm motion planning.